Optical Sectioning Microscopy by Wavelength Scanning Digital Interference Holography

This award will develop a simple yet novel and versatile digital holographic microscope
device for imaging three-dimensional microscopic volume objects. The resultant images
obtained from this device will have submicron resolution in both the lateral and
longitudinal directions. Moreover, the blurring and degrading of images due to out-of-
focus object planes are completely suppressed. The device is based on numerical
reconstruction and interference of a number of digitally recorded holographic images,
while the wavelength of the illuminating laser is scanned. Because a hologram retains
all of the amplitude and phase information of the light field and because of the freedom
of digital manipulation of the holograms, it is possible to carry out an interference
process in the numerical virtual space that is quite impossible in physical space. When
a number of holographically recreated light fields of varying wavelengths are
superposed, and if the wavelengths are regularly spaced, then the interference among
them result in the light intensity being concentrated at object points only - propagation
of light through space is in effect eliminated. When focused, numerically, on an
image plane, only those points corresponding to any discontinuities or irregularities,
such as cellular surfaces and structures, of the object render bright image spots. The
resulting effect is analogous to scanning confocal microscope images, but this
system presents significant potential advantages. It has no mechanical moving parts.
The image acquisition consists of N exposures of two dimensional images, instead of
pixel-by-pixel build-up of 3D volume. The range of physical sizes and resolution of
objects that can be imaged is readily controlled by proper choice of the wavelength
intervals. And with the holographic phase information readily available, further
interferometric or holographic image processing is possible. Furthermore, the optical
sectioned images of the awarded system can be reassembled into a three-dimensional
digital model that can be further manipulated for specific applications, such as
correction of scale distortion, arbitrary section and cut-away views, and automatic
feature enhancement and identification. This system has a potential to impact
the general field of microscopic optical imaging by providing a simple and versatile
mode of acquiring and manipulating three-dimensional digital model of microscopic
objects.